Mathematical Sciences: Nonlocal and Nonconvex Problems in Physics

This project is centered on problems in physics and partial differential equations which have the common feature that nonlocal or nonconvex effects produce a lack of compactness. The problems are divided into three categories: Self-force problems in electro-magneto-elasticity, problems in viscoelasticity, and problems in the theory of compensated compactness and weak continuity.